Case Studies Development as a Constructivist Pedagogy for Teaching Work Analysis and Design

59: Engineering - Other

Proposal ID 0737021

University of South Florida
Department of Industrial and Management Systems Engineering

This project focuses on the creation of case studies to support the constructivist approach for teaching Work Analysis and Design. Case studies involve solving engineering related problems within healthcare, transportation, retail and entertainment environments. The project includes a paradigm for promoting learning through active knowledge construction rather than passive transfer of information to students. This course content expands beyond the traditional applications of manufacturing into the service enterprise and information technology sectors. Results of this project promote the use of innovative techniques to make courses more learner centric and innovative.